Mathematical Sciences: Experiment Design for Variance Functions

The proposed investigations include properties of balanced designss in the general random effects model, development of Bayesian optimal experimental designs for some simple examples of variance functions and computer implementation of a Bayesian method for choosing sample sizes.